NMR Studies of Structure, Order, and Dynamics in Liquid Crystalline Polymers

9806810 Frydman This project focuses on studies of the order, structure and dynamics adopted by liquid crystalline polymers. These are important macromolecules with numerous practical applications as structural materials and in optoelectronic devices. Their usefulness derives from special characteristics including a superior thermal and chemical stability, a tendency to aggregate into ordered domains when appropriately dissolved or molten, and an ability to retain these anisotropic arrangements upon being frozen or coagulated into solids. Using a variety of oneand multi-dimensional nuclear magnetic resonance (NMR) techniques, this research proposes further characterizations of these macromolecules in both their solid and fluid phases. A common feature of the proposed experiments is their reliance on natural abundance spin probes, an approach which imposes no preconditions on the types of samples to be analyzed. In order to deal with the spectral complexities arising when using such techniques, new protocols will be developed involving the collection of data in coordination with well defined sample reorientations with respect to the NMR magoetic field. This will enable atomic level characterizations of numerous complex liquid crystalline polymers including commercial thermotropic polyesters and their polyrner blends, polymers incorporating fluorinated probes, new types of Iyotropic polyamidcs, and thermotropic polymers characterized by the inclusion of metal centers. These measurements will help elucidate the complex rotational isomerisms occurring in these systems, and clarify the possibility of chemically controlling their macromolecular alignment. New MNR experiments will also be exploited to investigate the rotational and viscoelastic dynamics of these polymers in their rnelt, to monitor how these fluids change their order upon freezing/coagulating into solids, as well as the nature of the macromolecular relaxation processes characterizing the resulting glasses. %%% It is expected that as a result of these studies, a new and deeper understanding on the atomic- and molecular-level behavior of liquid crystalline polymers will result. This in turn should provide valuable knowledge for improving the practical characteristics of these novel kinds of commercial materials. It is also anticipated that this research will enable a thorough training of scientists familiar in thc application of advanced spectroscopy to polymer research at postdoctoral, graduate and undergraduate levels. ***